Synthesis and Chemistry of Vinyl Peroxides

This proposal will study the unusual and rare class of peroxides that have an o-o bond adjacent tot a carbon-carbon double bond. This study will complement previous work done on acyl and alkyl peroxides and should provide fundamental knowledge in the area of oxygen - centered radicals. The proposal will also examine methods to generate vinyl peroxides under mild conditions with subsequent study of their polymerization. The planning activities will include the following: 1) Literature search and consultation with senior researchers. 2) Molecular orbital calculations. 3) Synthesis of vinyl peroxides. 4) Drafting MRI competitive proposal.